Using Computers to Complete an Undergraduate Mathematics Curriculum

Students at all undergraduate levels are benefitting from a laboratory equipped with IBM compatible computers and a variety of software. They are addressing issues related to the advantages and limitations of problem solving using computers, and doing simulations, experimentation, and testing of algorithms. The institution will contribute an amount equal to the award.//